Influence of Concrete Creep on the Load Capacity of Reinforced Concrete Shell Structures

A number of reinforced concrete shell roofs have failed a number of years after having been placed in service. Although no fatalities have occurred as a result of these failures, several have been total collapses. With the current state of finite element capabilities, it is possible to evaluate a failure load for these structures including creep, nonlinear geometry and nonlinear material responses. This research focuses on the development of the procedures to perform such an analysis then apply these procedures to verify their determination of failure conditions for those roofs which did fail.